Workshop: Scaling Processes Between Leaf and Landscape Levels; Snowbird, Utah; December 2-5, 1990

A workshop on spatial and temporal aspects of ecological scaling as they relate to exchanges of water, carbon, and energy in terrestrial ecosystems will be conducted at Snowbird, Utah from December 2-5, 1990. It will focus on scaling between leaf-level ecophysiological processes, the whole plant, the community, the ecosystem, and the globe. Issues of scale dominate and constrain the contributions of ecophysiology to global change research. Yet it is evident that ecophysiologists, whose primary interests lie in mechanistic, process-level studies, have not adequately considered linkages between their disciplines and others interested in the ramifications of these processes at broader geographical and longer temporal scales. This workshop will bring together ecophysiologists, ecologists, biometeorologists, ecosystem ecologists, and remote sensing specialists interested in the challenge of scaling to meet the critical need of linking process- level and global scale interests. In content and format, this workshop will be geared toward formulating the paradigms and facilitating the contacts necessary to establish the role of ecophysiology in the emerging field of earth system science.